Acquisition of Computer Graphics Instrumentation for Computational Biology

This is a proposal to purchase six color computer workstation, a high speed graphic server a color laser printer, peripherals for storage and video graphics, and related software. Funds for a 50% computer services manager to manage the system and provide training and graphics consultation will be provided by the University. The facility would be available to all faculty and students with either theoretical or experimental research programs involving computational problems in biology. Use of the instrumentation will form a core feature of graduate research training in computational biology across the campus.